International Conference on Beam Processing of Advanced Materials; to be held Cleveland, OH, October 30-November 2, 1995

9528002 Singh The International Conference on Beam Processing of Advanced Materials will cover the latest research activities around the world with both invited and contributed presentations. The conference will include speakers from under-developed countries. Advanced materials processing by laser, ion beam, electron beam, microwave, radio frequency and plasma will be covered at this symposium, which is organized by the American Society of Metals.